OPP-PRF: Revealing the Genomic Underpinnings of Polar Bear Physiological Adaptations to the Arctic

Study of the genomic basis and evolution of physiological adaptations can provide valuable insight on the impacts of climate change on Arctic species. This research focuses on the polar bear, an iconic symbol of climate change, and its adaptation to high-latitude environments. Multiple types of genome data from closely related bear species will be used to identify regions of the polar bear genome that underlie specific physiological adaptations. This information will improve understanding of current and future impacts of climate change on these animals. To broaden participation and diversity in Arctic science, the fellow will conduct public outreach, organize workshops, and mentor students from underrepresented groups.

While brown and black bears undergo annual hibernation in response to seasonal prey scarcity, the ability to hibernate has been greatly reduced, and nearly lost altogether, in the adaptation of polar bears to the Arctic. Given the complexity of the hibernation phenotype and the short divergence time between polar bears and hibernating bear lineages, evolution of regulatory sequences may have played a particularly important role in evolution. Through the integration of functional and population genomics datasets, this project will characterize the landscape of protein coding and regulatory evolution in three bear lineages and test the hypothesis that regulatory evolution facilitated the rapid adaptation of the polar bear lineage to Arctic environments. This work will advance understanding of the mechanisms and complexity of polar bear adaptations, the processes by which polar bears adapted to Arctic environments, and the vulnerability of this apex predator to climate change. The project will also provide insights into vertebrate genomics and evolution, broadening our understanding of the processes by which complex physiological traits arise and evolve in vertebrates.